Exchange Measurements Through the Straits of Gibraltar Sicily

9313654 Candela The goal of this proposal is to obtain long time series of data, which can be used to examine the annual and inter-annual signal in the flow through the straits of Sicily and Gibraltar, and to develop a method for long-term monitoring of the Atlantic- Mediterranean exchange. The proposed work consists of a two-year (1/94-1/96) moored array of current-meters, and pressure, temperature and conductivity sensors at the Strait of Gibraltar. It will be undertaken in cooperation with the European Community-sponsored PRIMO-1 program. Four six-month deployments are anticipated, all using a Spanish naval vessel. In addition a total of six sea level (PTC) sensors will be installed bracketing the Gibraltar moorings and the European's ones in the strait of Sicily. *** P Q R S T U V W X Y Z \ ^ _ ` a b c d e f g h i j l m n o p q r s t u v w x y z { | } ~ 9313654 Candela The goal of this proposal is to obtain long time series of data, which can be used to examine the annual a ! ! ! F 8 CG Times (WN) Symbol " Univers (WN) Tms Rmn " h S %S % z / Sylvia Garzoli Sylvia Garzoli